Acquisition of a Workstation and Software for Processing GPS Data

This award provides two-thirds of the funding required for the purchase of computer hardware and software that will be installed and maintained in the Department of Marine, Earth and Atmospheric Sciences at North Carolina State University. The University is committed to providing the remaining funding needed for this acquisition. The immediate research uses of the equipment and software will be in connection with data reduction and analysis on the Principal Investigator's research on crustal motion in the southwest Pacific region using the Global Positioning System of satellites for precise geodetic measurements.